Mechanisms of Mantle Convection and Magma Migration

There are two main thrusts to the research. The first is to support collaboration between the Principal Investigator and Professor Claude Allegre, University of Paris, on the interpretation of isotopic and other geochemical data in terms of mantle convection and related processes. The object is to understand how mantle dynamics leads to the geochemical signatures of mid ocean ridge basalt, ocean island basalts, island arc volcanism, and continental volcanism. Important questions include: Is mantle convection layered? Is there significant recycling of continental crust into the mantle? Is the layered, subducted oceanic lithosphere remixed into the upper mantle reservoir? The hypothesis that high-temperature peridotites are examples of a "marble-cake" mantle will be studied with a combination field, laboratory, and theoretical studies. A second major thrust of the proposed research is to support collaboration between the Principal Investigator and Professor David Spence, Imperial College, on the mechanics of magma fracture. Magma fracture is a major mechanism for the transport of magma as well as the origin of dikes and sills. It is also the mechanism responsible for maars and kimberlite eruptions. Buoyancy driven magma fractures will be studied as will the thermal aspects of magma migration in propagating fractures.